Geometric and information-theoretic aspects of high-dimensional phenomena

This proposal focuses on the study of geometric, analytic and
information-theoretic aspects of high dimensional phenomena
on the border of probability, convex geometry and analysis.
One part of the project concerns the problem of rates of
convergence in the entropic central limit theorem, and is devoted
to obtaining new asymptotic expansions for the relative entropy
with respect to the growing dimension. In other part,
it is proposed to perform a systematic study of the
dimensional behavior of the entropy and information for
different classes of probability distributions, satisfying
convexity conditions. In particular, new concentration properties
of the information content will be considered for dependent
high-dimensional data. It is planned to introduce and explore
special positions of probability measures, responsible for
correct behaviour of sums of independent summands
(when the entropy power inequality can be reversed).
Another part addresses the stability problem, raised by Kac
and McKean, in the entropic variant of Cramer's
characterization of the normal law.

The main theme of the proposal is the development of the
information-theoretic approach to high dimensional phenomena,
with focus on obtaining new asymptotic bounds on the entropy and
information. The study of entropy is dictated by various
applications within and beyond pure mathematics. Entropy plays
a key role in statistical physics (in order to capture
the amount of disorder in a system), in statistics
(to measure the performance of statistical estimators),
in engineering and mathematical theory of communication.
The proposed research also aims to provide new connections between
probability, geometric functional analysis and information theory,
and to demonstrate an increasing role of entropy
bounds in purely mathematical fields.

An integral component of the project is the involvement and
training of the graduate and undergraduate students.